Computer Hardware and Software for a Multidisciplinary Geographic Information Systems Laboratory

A multidisciplinary laboratory program is being developed making use of Geographic Information Systems equipment. Students in geology, geography, and in plant and earth sciences are making use of spatial data bases as a part of their disciplinary coursework. As a part of the program connections are being made among such areas as cartography, land use, wildlife management, geology, and ecological resource inventory.